Developing Computer Simulations of Protein Laboratory Procedures for Case-Based Learning in International Biology Curricula and Pre-service Science Teacher Education

We are developing open-ended computer simulations of protein laboratory
procedures for case-based learning in international biology curricula. We are distributing
these simulations freely via Internet download so that they are available to university and
high school students worldwide. Existing protein software applications lack the ability to
produce realistic, easily understandable output for procedures such as enzyme
immunoassays, hemagglutination inhibition, immunofluorescence, protein
electrophoresis, and western blotting. Such procedures are especially useful for the
analysis of cases involving infectious diseases of humans and domestic animals including
anthrax, foot-and-mouth disease, influenza, HIV infection, hantavirus, encephalitis, Lyme
disease, genital herpes, hepatitis, brucellosis and rinderpest, among many others. They
provide a vehicle for making topics in molecular biology more interesting and relevant to
students, particularly female non-science majors. Protein simulations complement
DNA simulations we have previously developed and freely distributed for the analysis of cases
based primarily on human genetic diseases. The proposed simulations have wide
applicability because they can be adapted to any protein-based case scenario. Students
can participate in Internet "poster sessions" via an online integrated web editor /
conferencing system we developed with prior NSF support.

Pre-service science teachers are being used as research assistants for assessment, and results
are being widely disseminated via presentations, workshops, and publications including the
BioQUEST Library. The BioQUEST Curriculum Consortium strongly supports this
proposal and is assisting in the evaluation and dissemination of project results.